Continued Support of the Duke University Center for the Study of Primate Biology and History

9512917 Glander This award provides renewed support for maintenance of a collection of prosimian primates maintained at the Duke University Primate Center. These animals are of particular interest for research in animal behavior and in evolutionary biology. The collection includes a number of rare and endangered species, including aye-ayes and sifakas, most of which are now only found in the wild in Madagascar. The Duke Primate Center was established in 1966 with the help of an NSF award. Since then, the number and species diversity of prosimians represented in the collection has grown from the initial 80 individuals to approximately 500 individuals representing approximately 17 species of lemurs and loris. Approximately 85% of the animals were bred at the Center. Funding provided through this award helps make these animals available for study by investigators from other institutions. Although it does not support them directly, this award facilitates a vigorous program of educational and conservation activities carried out by the Center. ***